SBIR Phase II: Innovative Software Definable Radio and Network Architecture for Low-Cost Commercial Application

This Small Business Innovation Research Phase II project follows a successful Phase I technology demonstration and will establish the feasibility of a multimode (IEEE 802.11 and Bluetooth) data communications system using a single-chip radio modem and a single-chip baseband processor, both software configurable. The program objectives are, (1) Quantify key system design parameters, (2) Determine the best suited radio and baseband processor architectures, (3) Identify critical system features and interfaces
needed to assure system applicability to existing and anticipated commercial applications.systems, (4) Specify a radio and baseband system to be simulated with the Ameranth 21st Century Restaurant(TM) commercial design software, (5) Design a prototype radio, (6) Construct a prototype transceiver module using selected Ameranth terminals, (7)Demonstrate the operation of the system using the Ameranth terminals/system application(s), and (8) Prepare for initial production and commercialization. The technology is a Bluetooth chipset implementation using silicon-on-insulator wafer structure and BiCMOS transistor structure.

The market for wireless computing devices is enormous. Ameranth products have applicationacross a wide range of industries, including the hospitality, retail, transportation, law enforcement, health care, finance, telecommunications and defense industries. Ameranth has more than 2,300 customers that have expressed interest in these products.